Mathematical Sciences: Research Experiences for Undergraduates in Statistics at Penn State

DMS-9424043 Rosenberger This REU site award provides support for ten undergraduate researchers in statistics. The research at this site will come from problems arising in statistical consulting projects. The program will run for ten weeks. There will be seminars during the summer to present the problems involved in the projects to the other participants.